First American Symposium in Stereology for the Neuroscience,University of Illinois, Urbana, IL, October 25-27, 1990

This award will support course on stereology for North American neuroscientists. The techniques to be taught will allow for an unbiased quantitative analysis of morphological structures. Participants will be given first hand experience through lectures and laboratory exercises provided by scientists who are the forerunners of quantitative anatomy.